TIGER: Thailand Inventory Group for Entomological Research

The insects and spiders of Thailand, one of the most
biologically diverse countries in the world, will be sampled and
inventoried. Various traps will monitor these arthropods in 30 of
Thailand's National Parks and Wildlife Sanctuaries over a three year
period. These collections will be identified to the family level and
shipped to The University of Kentucky, where they will be further
identified and then shipped to about 100 collaborating scientists around
the world. Access to conduct research on Thailand's biodiversity is
available at an unprecedented level, making previously mysterious habitats
available to investigation. A window of opportunity has opened that may not
exist for a prolonged period, due to political decisions, and habitat
destruction caused by rapidly growing populations.

Products of the grant will be disseminated broadly through
traditional publications, databases, and web products, which will be
written in both Thai and English. Bridges between the international
scientific community and Thailand will be built to the mutual benefit of
both, and the resulting research will be of importance to Thai conservation
research, and the many applied sciences that depend on good taxonomy such
as the biological control of forest and agricultural pests. Products will
include species checklists, new species descriptions, interactive
identification keys, bigger and better collections, and an increased
ability to identify insects that are a threat to the international
community as invasive pest species. The research programs of all of the 100
or more collaborating scientists will be enriched with new biological
data. Graduate and undergraduate students will be trained in biodiversity
management both at the University of Kentucky and in Thailand.